MRI/RUI - Aquisition of robotics equipment for an Intelligent Systems Laboratory

This project, acquiring robotics equipment for an Intelligent Systems Laboratory (ISL), aims at facilitating the development of cross-disciplinary courses and providing exciting research possibilities. Furnishing opportunities of joint collaborations with other disciplines, ISL enables students and faculty to investigate, design, and implement control algorithms using non-traditional techniques derived from various subdisciplines of Artificial Intelligence, such as fuzzy logic, neural networks, genetic algorithms, hybrid approaches. ISL fosters research and development of solitary cooperating autonomous or teleoperative mobile robots for a variety of tasks such as gathering data from potentially hazardous environments and facilitating search and rescue missions.
Areas identified for research, motivated by terrorist attacks, include:
Design and deployment of intelligent agents for bio-surveillance and threat detection, and
Design and implementation of large-scale hybrid systems tools for soft computing, complexity analysis, and intelligent applications.
Robotics kits will be acquired, facilitating research, research training, and integrated research/education activities at various academic levels. New interdisciplinary courses will be developed and cross-listed in Machine Intelligence, Intelligent Systems, Design and Applications, Intelligent Control, and Autonomous Robots. Moreover, participants will be recruited for Girls SRC, a Summer Robotics Camp for junior high school.